A New Brittle Lacquer for Experimental Stress Analysis Applications

This is a project to produce an inexpensive material that can be used to perform experimental stress analysis. The main ingredient of the material is common sugar. The proposed project is to calibrate and evaluate reproducibility of the material. The results will encourage the use of experimental stress analysis methods when cost is major factor.